National Workshop on Mathematics and Engineering Education Reform to be held at the University of Maryland, College Park, Maryland on June 5 and 6, 1991.

It is generally believed that by the year 2000, less than a decade away, the United States will face a serious shortfall of engineers and scientists. Many believe that the problem lies not only in the demographics which project decreasing numbers of 18 to 22 year-olds entering the nation's colleges, but also a serious problem in the way in which engineering, mathematics and science are taught in our schools. National reports have been written, conferences held, and some very successful models of educational reform and innovation have been implemented at individual institutions. The University of Maryland, College Park is sponsoring a workshop to bring together national leaders who have been at the forefront of these activities to develop an action model to transfer, where appropriate, some of these innovations in mathematics and engineering education. The workshop will be held at the Center of Adult Education at the University of Maryland, College Park, Maryland on April 11-12, 1991. The objectives of the workshop are: o to bring together a small but select group of national leaders in mathematics and engineering education reform; o to provide a forum for the exchange of the best of the national projects in mathematics and engineering education; and o to develop an action agenda for national implementation of the best of these projects in mathematics and engineering education.